Computational Models of Olfactory and Spatial Cognition

This award provides funds to a group of neuroscientists at the University of Arizona for the purchase of a computer, networking hardware, and associated software. This equipment will be used to analyze experimental data resulting from comparative studies of olfaction and spatial orientation in lower and higher animals. Though collaborations with mathematicians, these investigators plan to generate models for nerve cell interactions that appear fundamental to these processes. Models will be based on anatomical and electrophysiological properties of the nervous system. Other models will have an explicitly behavioral basis. The models will developed using a neural network simulation program called GENESIS and the computer. Interspecific comparisons have traditionally provided a useful tool in understanding the underlying mechanisms of biological processes. Increasingly, the use of experimental data and theoretical schemes for the synthesis of models that make detailed predictions has played an equally important role in modern biology. Olfaction and spatial orientation are both problems of nervous integration that have interested neurobiologists for some time. The use of computational models, in particular neural network models, to get at the underlying integrative mechanisms is a promising approach to these classical problems.